Engineering Research Equipment Grant: Epitaxial Reactor

A special apparatus modified from a special epitaxial growth system will be built to investigate electron- and photon-beam assisted epitaxy of Si and III-V materials. This is a field of a critical nature, with the potential for a major impact on electronic materials studies.